Collaborative Research: Dynamics of the MJO (DYNAMO) Scientific Program Overview

This is an award to support continued planning for DYNAMO. It is not a commitment by NSF to fund the field project and related analysis and numerical simulation work. Those funding decisions will be determined by means of further review.

The Dynamics of the Madden-Julian Oscillation (DYNAMO) project is a field campaign to study the iniitiation of the Madden-Julian Oscillation (MJO), followed by a suite of data analysis, modeling, and forecasting studies. The MJO is an envelope of organized convection that propagates from the Indian Ocean to the Pacific Ocean and constitutes the dominant form of intraseasonal precipitation and atmospheric circulation variability in the tropics. The MJO influences a variety of tropical weather and climate phenomena,including tropical cyclones (affecting hurricanes in the Gulf of Mexico), the onset and intraseasonal fluctuations of the monsoons and rainfall over Asia, Australia, Africa, and the Americas, and the onset of El Nino events. Despite its importance and concerted efforts over several decades, the MJO has not yet been adequately explained, and global atmospheric circulation models have difficulty simulating and predicting it.

The field campaign is planned for October 2011 to March 2012, to take advantage of an international effort known as the Cooperative Indian Ocean Experiment on Intraseasonal Variability in the Year 2011 (CINDY2011). The DYNAMO observing array would take the form of a quadrangle observing array consisting of two ships and two islands. The islands are Diego Garcia (approximately 7S, 72E) and Gan, the southernmost island of the Maldive chain (near 0S, 73E). The ships would be located roughly 10 degrees east of the islands, and one ship station would held by a US research vessel (RV) while the other would be held alternately by RVs from Japan, Australia, and India. The RVs collect atmospheric and oceanographic observations using a combination of moored buoys, ship-based air-sea flux measurements, radars, and radiosonde launches. A radar "supersite" including radars of varying wavelengths, is planned for Gan, in addition to radiosonde launches on the island. Diego Garcia provides radiosonde launches to allow a four point observing array which can be used to compute the convergence of atmospheric heat and moisture fluxes.

The DYNAMO project seeks to test three general hypotheses regarding the initiation of the MJO, which focus on the interaction between convection and environmental moisture, the evolution of cloud populations, and air-sea interaction. The first hypothesis is that "Deep convection can be organized into an MJO convective envelope only when the moist layer has become sufficiently deep over a region of the MJO scale, and the pace at which this moistening occurs determines the duration of the pre-onset state. The second hypothesis is that specific convective cloud populations at different stages are essential to MJO initiation. Clouds are considered to play two roles, one as a moistening agent through detrainment and the other as a driver of large-scale circulation through diabatic heating. The third hypothesis is that air-sea interactions and ocean conditions play an essential role in the initiation of the MJO, particularly in establishing the tropical Indian Ocean as the locus of MJO onset.

The project aims to improve the ability of numerical models to provide forecasts of MJO activity, which would be of great societal benefit due to the connections between the MJO and fluctuations of weather and climate (including hurricanes). DYNAMO would also have a strong educational benefit by introducing young scientists, including graduate students, to the tropical meteorology and oceanogaphy of the Indian Ocean. A field campaign on the scale of DYNAMO has not previously been carried out in the Indian Ocean, and the data collected during the campaign would be beneficial for a variety of purposes, including improvements to convective parameterization in climate models and the calibration and validation of satellite retrievals.